Kinetics of Gas-Phase Reactions of Metallic Species Over Wide Temperature Ranges

Research is underway to extend the range of temperatures in which metal chemistry is understood. Also to be studied are the reactions involving metallic oxides and monohalides. This higher range (up to 1900K) requires the design of a pseudo static photochemistry reactor (HTP) where reactions can be initiated and monitored without wall interference. In these experimental conditions where the wall limitations disappear, the former, well understood, fast flow technique (HTFFR) can be used in addition, and the cross validation of these two methods become possible. The addition of an excimer laser would make possible the photolytic generation of a broad range of metals from their compounds. The reactions contemplated involve Mn, Ba, Cu, Al and Ca. The presence of these elements in fly ash and soot is the cause of problems of corrosion fouling or even dust explosions. Conversely, some industrial processes (e.g. carbon black generation, chemical vapor deposition in electronics manufactures) depend on such chemical activities. The impact on such new knowledge on industrial practice could be substantial.